Computer Hardware Learning Laboratory

This project provides equipment for a new hardware laboratory designed to allow students to develop the skills of critical analysis, careful reasoning, creativity, and self-expression. The laboratory will include ten laboratory stations based on Macintosh computers and equipped with oscilloscopes, logic probes, and prototyping hardware and software to explore the use and construction of computer hardware.